Collaborative proposal: Focused Research Group on Fundamental Problems in the Dynamics of Thin Viscous Films and Fluid Interfaces

0074049
Bertozzi

A combined experimental, analytical, and computational study of
fundamental problems in the dynamics of thin viscous films and fluid
interfaces is proposed. The recent discovery of stable undercompressive
waves in driven films has created the opportunity for a unique
collaboration between experiments and mathematical theory. This research
program will include related studies of solid-liquid-vapor interfaces,
moving contact lines, and surface tension effects. Analytical and
computational studies will be integrated with a series of experiments that
includes a search for undercompressive waves in a spin coating geometry,
motion of contact lines near room- temperature critical points, and high-
speed video imaging of the dynamics of singularity formation in finite-
time rupture of fluid interfaces. Mathematical analysis will include models
for film rupture, stability of driven contact lines, and numerical analysis of
schemes for computing these problems.

Liquid films and moving contact lines arise in problems ranging from
industrial design of paints and microchip fabrication to medical
applications including contact lenses and the lining of the lung. All of
these problems involve interactions across widely different length-scales
in which the physical laws are not clearly understood. This is a
collaboration between researchers from the Mathematics (Bertozzi,
Witelski) and Physics (Behringer) Departments at Duke University and
the Mathematics Department at North Carolina State University (Shearer).
This effort combines mathematical modeling, analysis, and numerical
simulation with new laboratory experiments to study fundamental
problems in driven films and moving contact lines. Computational and
mathematical models will direct the design of experiments investigating
new phenomena in spin coating processes and dewetting films. The
program will involve undergraduates, graduate students, postdoctoral
associates, and visiting scientists from other institutions. This research will
foster curriculum developments in the Departments of Mathematics,
Physics and the Center for Nonlinear and Complex Systems at Duke
University